Postdoctoral Research Fellowship in Plant Biology

This is an individual award for the Postdoctoral Fellowship in Plant Biology. The applicant received his Ph.D. from the University of California at Los Angeles in molecular biology studying the regulation of membrane protein genes in Lemna. He plans to carry out his postdoctoral fellowship research in the laboratory of Dr. Arthur R. Grossman at Carnegie Institution of Washington at Stanford. His research entitled "Generation and Characterization of mutants in chromatic adaptation In Fremyella diplosiphon" will broaden the applicant's scientific training into photobiology and environmental biology.